UMEB: Extended Undergraduate Research Apprenticeships in Environmental Biology

WPC 2 ? B 2 Z Courier 10cpi t (25inOne!) # : m \ P ; W X P# HP DeskJet 500 HPDES500.PRS x @ x X , , 0 FX @ 3| p : m \ P ; 4X P# 2 t q V Pres Elite 10pt (25inOne!) (25inOne!) ALB8IAD.PRS x @ 0 cjX @ #| x Courier 10cpi Dutch ? x x x , Z x 6 X @ 8 ; X @ l @d@dd0dlXld@`l84h8 llllLL@l\ XXXddd dH d ddd@ x @@ d x l d dxd d d X d d d dH8H8H8H8 l l l l l l l l lxX d l l l Xxlxl d d d X X X X l d d d d ` ` ` ` ` ` l lH H H8H X h 8 8 8xx 8 l l l l l l L L LlLxxlLlL @ @ @ l l l l l l X X X X l 8 l LlL @ X X l l lNx xx dd@dddd xxHH d< llx < xxxxx xxxx x xm@ xx xx dxxxxxxx x xxxxxxxxxx xt xx x xxxxxx x x MMM MMM MMM MMM 2 P 4 Y Courier 10cpi CG Times 12pt 25inOne!) @ 8 ; X @ * t C 4 , !X t 4 P z S X P .) (...Fortsetzung) Systemname: Dateityp: Name des Dokuments: Art des D ents: Erstellungsdatum: Revisionsdatum: Verfasser/in: Schreibkraft: 2 X 0 X \ ? x x x , Z x 6 X @ 8 ; X @ 8 p C < , W X p P rk ; X P F F V & < w 2 . < t < u & < u < tı & 3 & | t N ^ 5. u F & D 3 F F& 2 & \ ~ ; t S > * ? t O G Ql 8 l LlL @ X X l l lNx xx dd@dddd xxHH d< llx < xxxxx xxxx x xm @ xx xx dxxxxxxx x xxxxxxxxxx xt xx x xxxxxx x x 2 x x x , x @ 8 ; X @ * t C 4 , !X t 4 P z S X P ' + - 8 : < > @ B 6 6 6 6 6 6 ^ # r u n n j J 6p M bw : _^ZYX n n j J PQVW s & F " m o 8 ; ^<D\dd DDDd DDDDddddddddddDD X | |x DL | t l| DDDddDXdXdXDdd88d8 ddddHL8dd ddXXdXd d ddDDddd D d d d X X X X X X|X|X|X|XD8D8D8D8 d d d d d d d d d d X d d d d dtd X X X X X X X d|X|X|X|X d d d d d d d dD D D8D L d|8|8|8|8|8 d t d d d d H H HlLlLlLlL|8|8|8 d d d d d d d X X X d|8 d HlL|8 d d d d d D/ N d ddDXPPdd ddd dHdddd H d x H d h 1D DD x dp d x d x X L p x xdx X x x xL xxxxxxxxxxxxxxxxxxxLLLLLLL x 2 9317435 Travis Minority students are grossly underrepresented among those students who commit themselves to careers as research scientists. This deficiency is even more marked in environmental biology than in many other fields, resulting in a severe underrepresentation of minority scientists in environmental biology. We propose a program to recruit promising minority undergraduates and guide them into Ph.D. programs in environmental biology. The program will recruit three cohorts of students and guide them through a two year plan of customized course work and research apprenticeship. We will work together with the NSF funded Florida Georgia Alliance for Minority Progress Program at Florida A&M University to offer opportunities t o a broader group of talented, science oriented minority students than exists at Florida State University alone. The program will take advantage of existing programs at the two schools that will help us overcome the problems of preparation and social adjustment that hinder many talented minority students who seek to participate in a scientific setting. This program, with its variety of intensive personal interactions between research faculty and students, and among the students themselves, will provide the personal mentorship that is critical to guide undergraduate students into research careers. We will evaluate and assess the success of the program by following the post graduate trajectories of our students and comparing them with a series of cohorts matched for background and prior achievement who have not participated in the program.